Presidential Young Investigator Award

This project deals with elastic and quasielastic light scattering from systems that are far from equilibrium. One of the goals is to understand better the dynamics by which systems reach equilibrium states from initial, non-equilibrium conditions. Initial work will focus on binary polymer blends as they phase separate after being quenched from a liquid melt state. A factor, important in determining scattering wavelengths, is wetting phenomena, i.e., the preference of one of the phases for the surface of the container. The apparatus being developed for this research will have the sensitivity to probe these surface effects and thereby allow investigation of a fundamental but heretofore ignored effect. Materials preparation aspects of the project will focus on use of a shear cell to elongate monodisperse droplets to yield ellipsoids that can be frozen in shape by photo-crosslinking. These ellipsoidal colloids should provide novel phases and phase transitions that have been predicted theoretically, but not yet observed experimentally.